Program for Gender Equity in Science, Mathematics, Engineering and Technology (PGE): Reengineering Operation SMART

Girls Incorporated seeks a planning grant of $30,000 from the National Science Foundation's
Program in Gender Equity to develop a plan and proposal to reengineer our Operation
SMART program. With the proposed grant, Girls Inc. will compile and assess the research,
technology, and our own experience relative to girls and science, math, engineering, and
technology. We will then convene a meeting of experts to discuss this body of knowledge
and help map out are engineered program design and demonstration plan for Operation
SMART. This will enable us to provide an informed, relevant, accessible, and exciting
new program to capture and retain the interest of a new generation of girls in the areas
of science, math, engineering, and technology.